RUI: Amino Acid Availability and Growth Control in Yeast

Nitrogen is an essential element for growth of a living cell and it has been shown that nitrogen availability controls both the mitotoic and meiotic cell cycles in the yeast, Saccharomyces cerevisae. A novel class of yeast mutants (aat1-3) has been isolated which have a range of growth phenotypes (inability to grow on rich media, sensitivity to amino acid analogs, heat shock sensitivity) that are only evident when the cell also requires a particular amino acid for growth; prototrophic strains containing an aat mutation grow normally. Amino acid transport is misregulated in these strains and there is genetic evidence for a close relationship between Aat proteins and the products of the growth controls (RAS /cAMP) pathway. A complete genetic analysis of these mutants is proposed to elucidate their function in the control of amino acid transport and to establish if the Aat proteins have a role in the control of cell growth and division by nutrients availability.